Travel: Student Travel Support for the Doctoral Colloquium at IEEE Visualization (IEEE VIS) 2026

This grant will provide partial travel support to about 15 U.S.-based students to attend the Doctoral Colloquium at the IEEE Visualization & Visual Analytics Conference (IEEE VIS) 2026. This is a single-day forum that fosters the academic and professional development of young researchers in the field of visualization. The VIS Doctoral Colloquium, founded in 2006, focuses on the participants’ doctoral dissertation research and aims to develop the intellectual rigor of their research program. The colloquium provides a forum for students to exchange research ideas, discuss their on-going work, and improve upon their research agendas. The research presented at the event reflects state-of-the-art in visualization. The Doctoral Colloquium will improve STEM education at the doctoral student level by providing students with targeted mentorship from experts in their professional community, at a critical stage in the students’ professional development.

Each applicant will be reviewed by two out of the three Doctoral Colloquium co-chairs, assigned such that conflicts of interest are avoided. The review committee members make the decisions based on the application materials described in the VIS 2026 Doctoral Colloquium Call for Participation, based on evidence that (a) their previous research has made intellectual contributions to the field of visualization, and (b) their proposed research plans are at a stage in which they would benefit from feedback from the Doctoral Colloquium panel of distinguished researchers. Six colloquium panelists will be selected by the Doctoral Colloquium Chairs by July 2026. Panelists are chosen based on their reputation in the research field and their ability to provide constructive feedback to young researchers.